Quantitative Social Science Digital Library Pathway (QSSDL)

The Quantitative Social Science Digital Library (QSSDL) Pathway provides a portal to materials and modules that integrate quantitative analysis with the teaching of the social sciences. QSSDL is a partnership of the Interuniversity Consortium for Political and Social Research (ICPSR) and the Social Science Data Analysis Network, both at the University of Michigan, and the American Sociological Association, the American Political Science Association, and the Association of American Geographers. Quantitative analysis has long played a key role in social science research. Influential voices have been calling for ways make data analysis a staple feature in a large variety of courses in the social sciences, including introductory courses. This pathway is designed to help instructors find high quality teaching materials and datasets for student exercises and research. It is building on the rapid acceleration in the availability of data, the creation of new educational tools, and growing interest by instructors in making innovative use of digital resources for instruction. The integration of this social science pathway into the portfolio of NSDL Pathway projects adds a new resource to the existing networked infrastructure of repositories and professional associations. Experts in the Science Education Resource Center (SERC) at Carleton College are providing pedagogical, assessment, and evaluation services. In particular, SERC is conducting evaluations that include pre- and post-intervention assessments of faculty use of QSSDL resources on ten selected campuses, and QSSDL teaching materials are being linked to the "Pedagogy in Action" server at SERC. The QSSDL Pathway helps individuals who create resources by providing archiving and preservation services for those lacking adequate institutional support. This project also builds on ICPSR's long and successful model of sustainability, which is based on a diverse portfolio of memberships held by colleges and universities, research grants, and contracts.